Modernization of Physics Laboratory Instrumentation Including Community and Student Support Facilities

This project is intended to help the ethnically and culturally diverse community served by Miami-Dade Community College improve scientific skills by assisting physics students and high school physics teachers. In order to help our students improve their understanding and applications of physics, they will be introduced to a series of laboratory experiences using computers and video technology. It is our expectation that in the process of doing science, students will develop computer skills as well. In addition to formal laboratory settings, a separate facility, fully equipped as a tutorial lab run by both instructors and peer tutors, will be made available to physics students who need additional help. This will enhance their understanding physics through active engagement in their own learning in an environment that encourages them to build and communicate their knowledge. The combination of formal laboratories and tutorial services is expected to improve student retention and achievement in science courses and to help students develop higher levels of scientific literacy, analytical, and computer skills. MDCC is deeply committed to working with the community, particularly with the public high school system. This project will provide training for high school physics teachers in the use of MBL laboratories as well as in the adaptation and development of new laboratory experiences.